The Human BrainMap Database: Workshop I, San Antonio, Texas November 29, 1992

The award will support the Human BrainMap Database: Workshop I". The support for this workshop spans several Federal Agencies (Office of Naval Research, National Institute of Mental Health). The workshop will be held in San Antonio, Texas, from November 29 through December 2, 1992. The workshop will focus on issues of functional brain mapping (identifying the locations and computational properties of the neural populations that orchestrate human behavior) via positron emission tomography. In particular, issues of database design, standards, interfaces with computer software as well as data sharing and intellectual property will be discussed. This activity follows recommendations set out by the Institute of Medicine report: Mapping the Brain. It is anticipated that this will be the first of two workshops, with an intervening period of testing of specific software, BrainMap.